Molecular Spectroscopy

In this project supported by the Experimental Physical Chemistry Program of the Chemistry Division, Klemperer will study the dynamics and structure of small van der Waals complexes. He will use intracavity laser induced fluorescence (LIF) of seeded jets to achieve very high internal excitation energies and subsequently obtain the rotation-vibration distribution of the product photofragments. Klemperer will also exploit microwave-optical double resonance techniques (MODR) for very high-resolution studies, which will allow measurement of hyperfine structure and precise electric dipole moments. He will focus on complexes involving hydrides (HF, H2O, HCl) at high excitation levels of valence bond stretching, e.g., v=4 levels of HF stretch. The ultimate goal is to obtain information on the intermolecular potential surfaces and to provide stringent tests for models for vibrational predissociation dynamics.

The structures of molecules and the attractive forces between them are, in part, responsible for their reactivity. This research will provide detailed information on the nature of these interactions and the effect of molecular structure on chemical bonding. Such information is important for understanding the effects of solvents on chemical reactions or the folding patterns of proteins and nucleic acids.